Selfless C*-algebras, C*-linear groups, and classification

C*-algebras provide a formal framework for quantum theory and play an important role in Mathematical Physics and Quantum Information Science. As quantum technologies develop, there is a growing need for a deeper understanding of the mathematical structures that underlie quantum systems. This project is concerned with fundamental aspects of the structure of C*-algebras. The project aims to further the understanding of selfless C*-algebras, a class of C*-algebras defined using Voiculescu’s notion of free independence. The investigator will explore the extent to which selflessness is prevalent among C*-algebraic constructions, and how it relates to other properties that help organize the landscape of C*-algebra theory. The project includes support for the research training and travel of a graduate student. The project will also contribute to the development of operator algebra theory through conference presentations and the organization of a research seminar.

The defining property of a selfless C*-algebra requires the existence of nontrivial freely independent elements in the ultrapower of the C*-algebra. This makes it possible to use tools from free probability theory to study the structure of selfless C*-algebras. A central aim of the project is to show that this availability of free independence in an ultrapower occurs naturally in many C*-algebras of current interest. A guiding principle is that selfless C*-algebras may be viewed as C*-algebraic analogues of factors in von Neumann algebra theory. This is supported by Popa’s theorem that all II1 factors satisfy a von Neumann algebraic form of selflessness. The investigator aims to address the following two questions: (1) is every C*-simple group also C*-selfless?, (2) is every simple, monotracial C*-algebra with strict comparison selfless?